Tailored Gas Separation Membranes Through Selective Charge-Transfer Complex Formation

CTS-9308258 Johns Hopkins University Timothy A. Barbari ABSTRACT A new approach to improve polymeric membranes for gas separation will be explored in this project. Rather than synthesizing membranes of new materials or new composite structures, chemical modification to form charge-transfer complexes in various membrane polymers in current use is to be evaluated as a means of augmenting their gas separation properties. Bromination of nucleophilic sites alters the free volume and free volume distribution in polymers so that molecular diffusivity increases and selectivity changes. Permeabilities of CO2 and CH4 through a treated polysulfone film will be measured and compared with the untreated material. Growth in membrane sales for the next few years has been estimated at 12-15%. A large portion of this market is in gas separations to produce commercially important gaseous materials including the removal of carbon dioxide from natural gas and the separation of pure oxygen.